Presidential Young Investigator: Code Generation for Uniprocessors

Eggers The long range focus of this research is on improving the performance of parallel programs. One thrust uses compiler technology to obtain better multiprocessor cache performance, i.e., reduce the amount of sharing-related bus traffic. The initial phase of that work is the detection of false sharing and measuring its impact on cache miss ratios and bus utilization. Another area of investigation is measuring the amount and type of program level parallelism in nonscientific parallel programs and determining the levels of hardware parallelism that best execute them. The current focus of the research is in the following areas: 1. Compiler reorganization of shared data; 2. Runtime code generation; and 3. A protection model for a single address space architecture.